Collaborative Research: Integrating Computation into Undergraduate Physics--A Faculty Development Approach to Community Transformation

This collaboration among five diverse institutions will build and nurture a community of faculty committed to integrating computation in undergraduate physics courses. Although computational methods are important in physics research, they are scarce in the undergraduate physics curriculum. This project will address this need through faculty development workshops, a post-workshop support system, and a community building research project.

This project will focus on developing transportable, adaptable, and sustainable methods for infusing an instructional strategy into the undergraduate physics curriculum. It will place computer-based, algorithmic problem solving in a position that is coequal to traditional mathematical and experimental methods. Participants will develop computational exercises to be integrated into their physics courses at the workshops, and later will receive support to ensure that the integration of their developed materials into their courses is successful. Faculty ownership will be emphasized in the participants' development activities and is essential for transportability and sustainability. The project will conduct a thorough research study of the effectiveness of the community building approach, as well as the degree to which integration of computation into undergraduate physics courses has increased. It will serve as a case-study informing the literature on change in higher education practices. This research component and its dissemination plan will ensure that the community will continue to grow not only in membership, but also in the large-scale assessment and implementation of best practices. When the computational materials developed are used in physics classrooms, STEM student learning across the country will be enhanced.